U.S.-Australia Planning Visit: Biology, Ecology, and Evolution of Cave Fish

9724778 Noltie This project supports the visit to Australia of Professor Douglas Noltie of the Department of Natural Resources, University of Missouri-Columbia, and his graduate student, Mr. Kenneth Lister, to develop a cooperative research project in cooperation with Dr. William F. Humphreys of the Department of the Department of Terrestrial Invertebrate Zoology of the Western Australian Museum, Perth on the ecology, biology and evolution of cave fish that inhabit our respective continents. They will survey prospective field sites in the vicinity of Exmouth, Australia, ca. 1200 km north of Perth, as well as lay the groundwork for their collaboration and proposal submission.